COLLABORATIVE RESEARCH: Air-Sea Exchange Processes in TOGA-COARE

This proposed research is to study the air-sea interactions in the warm pool region in the South Pacific using observations taken during the TOGA COARE Intensive Observing Period. Air-sea fluxes, their variability, parameterization and coupling to the ocean and atmosphere will be determined using turbulence-equipped aircraft. Several unique flight plans are proposed which use 2 or 3 of the aircraft in highly-coordinated flight patterns to measure the surface variability of the fluxes, the vertical structure of the boundary layer and the atmospheric sensible heat, moisture, and momentum budgets. The coupling to the ocean is emphasized with the patterns centered over the TOGA COARE ships and buoys. The atmospheric budgets will be determined when possible within the scale of the larger array of radars and island sounding stations. The aircraft sensible heat, moisture, and momentum boundary-layer budgets will be compared to the larger scale budgets estimated from the array of ships and radars to determine the statistical basis of the larger scale budgets. This research is important because it serves as one of the studies of the TOGA COARE that link air-sea interaction processes to the larger scales that impact climate variability in an especially climate sensitive region of the world, the western Pacific Ocean, the field site of TOGA COARE.